Computation of 3D Hydrodynamic, Hydromagnetic and Dust-Laden Flows in Protoplanetary Disks and Their Roles in Planetesimal and Star Formation

ABSTRACT
The research to be carried out here centers on the transportation of mass and angular
momentum in protoplanetary disks surrounding young stars. "Turbulence" or "eddy
viscosities" have been invoked to solve a variety of problems, including the transport of
angular momentum outward from a disk to allow mass to accrete onto a central protostar,
the accumulation of dust to produce planetesimals, and their ability to act as an enhanced
viscosity which allows planetesimals or planets to migrate radially in the disk away from
the regions in which they formed. However, computing the transport of angular
momentum, dust, planetesimals, and planets within a disk using transport rates from
"eddy viscosities" may well be incorrect. Here, the sustainability of another process,
magnetohydrodynamic turbulence (which is highly dissipative) and its ability to transport
angular momentum, will be studied as a function of the disk's ionization. In addition, the
investigator's previous work has shown that vortices are efficient at transporting angular
momentum. His 3D modeling further indicates that grains can be trapped in these vortices
and concentrated. Using two new codes, one a hybrid particle/gas code and the other a
two-phase flow code in which one phase is the gas and the other is the dust, the
accumulation of dust in the disk's mid-plane, in the vortices that form within a disk, and
in the inter-eddy regions of the turbulence will be examined. All of these locations have
been suggested to be regions where dust concentrates and then undergoes agglomeration
or instability to produce planetesimals. A proposed scenario by which protoplanetary
disks fills with vortices will also be investigated. In this model a small, initial
perturbation produces weak internal gravity waves. Those waves, in a rotating, shearing
stratified flow, create vortices. The vortices are not steady, but oscillate, creating new
gravity waves, and the disk fills with waves and vortices.
The tools employed here are applicable to other problems as well, including the
circulation of Jupiter's atmosphere, modeling wake-vortices produced by wide body
aircraft, and the role of particulates in climate pollution. The results of this work will be
disseminated to the public through public lectures and popular articles. A graduate
student will be supported and trained in numerical modeling of fluid flows.